A Confocal Microscope for the Hopkins Marine Station

Abstract Thompson

A confocal laser scanning imaging system will be used by faculty, graduate students, undergraduates and visitors to Stanford University's Hopkins Marine Station. The equipment includes a Zeiss Axiovert SI00 inverted microscope and a Noran Oz confocal scanning system.This equipment will: I) Enhance ongoing faculty research, 2) Promote new research activities, 3) Promote the training of graduate and post-doctoral students in modern methods of optical microscopy in a way that will enhance their research and career
development, and 4) Strengthen ongoing efforts to permit undergraduate
students access to the lasted research techniques.
The confocal imaging system will be used by four principle investigators
to address a number of cell biological questions using methods ranging from
ion imaging, sophisticated fluorescence microscopy, high resolution
Nomarski DIC, to morphometry. One group is investigating the spatial and
temporal aspects of second messenger signaling in neurons following the
activation of surface receptors by neurotransmitters, including the
dynamics of Ca2+ and NO signals. A second group is investigating the
development and biophysical properties of motor systems in the squid using
neuroanatomical and immunocytochemical methods. A third study focuses on
the specializations of fish heater organs and cardiac cells using
immunocytochemistry and antibodies specific for different isoforms of Ca
pumps and myosin ATPase. The fourth group uses fluorescence imaging
techniques to investigate the time course and spatial pattern of NO and
Ca2+ during fertilization of the sea urchin egg.
The principle investigators are addressing questions at the leading edge
of their disciplines. This shared confocal microscopy center adds
substantially to their ability to further their science, enhances their
teaching efforts, and increases collaboration with Stanford colleagues and
visitors from other institutions. This is in keeping with the role of the
Hopkins Marine Station as a regional center for marine biology research.